Career: Stratified Volume Holographic Optical Elements for Volume Holographic Data Storage

9625040 Nordin There is a growing need for high capacity, rapid access data storage systems for applications such as video-on-demand, multimedia, large scale databases, and storage of huge sensor-derived data sets. As has been widely recognized, volume holographic storage concepts offer the potential of achieving such large data storage capacities in an extremely dense format with rapid data access times. However, holographic materials issues continue to pose challenges for the practical realization volume holographic data storage systems. A key aspect of this situation is the lack of suitable thick (-1 cm) permanent holographic media for read only and write-once-read-many (WORM) systems. Such media are a critical requirement for many potential applications in which dynamic storage is not needed. The primary goal of the research plan in this proposal is to solve this problem by developing a method whereby currently available thin-film holographic media with otherwise attractive properties can be used in applications such as volume holographic data storage that require thick holographic media. Specifically, stratified volume holographic optical elements (SVHOE's) composed of thin holographic layers interleaved with optically homogeneous buffer layers to form thick (~1 cm) structures will be developed to emulate the properties of conventional bulk holographic media. Previous studies of SVHOE's indicate the presence of a periodic angular sensitivity, which is unsuitable for volume holographic data storage in which the Bragg effect is used to minimize crosstalk between superimposed pages of recorded information. We will investigate removing this periodic angular sensitivity by modifying the SVHOE structure in two ways; first, with random buffer layer thicknesses and, second, with thicker holographic layers that themselves operate in the Bragg diffraction regime. Critical issues to be addressed include: (1) generalization of SVHOE diffraction models and analysis to the case of highly multiplexed gratings, (2) development of models of SVHOE diffraction behavior for random buffer thicknesses and thick holographic layers, (3) experimental verification of the predictions of such models, (4) determination of the fundamental and practical limits of SVHOE data storage capacity, and (5) determination of optical crosstalk and bit error rate performance both theoretically and experimentally. The outcome of the proposed work will be a thorough exploration of SVHOE diffraction properties and how such structures can be configured and used for holographic data storage systems. The education plan proposed herein is composed of three elements. The first is a new interdisciplinary graduate course for both computer engineering and optics students on the use of optics and photonics in electronic digital parallel computing. It will be taught by a computer engineer and an optical scientist, and will include both optics and parallel computing topics. The intent is to provide optics and computer engineering students with a broad enough background that they can investigate in a highly practical manner the potential of enhancing electronic digital computers through the employment of optical devices and subsystems. The second element of the education plan is the development of a one credit hour enrichment laboratory for undergraduate students on 3-D displays. During a six-week summer term, students will be exposed to a wide range of 3-D display topics, from basic concepts to state-of-the-art research and development work. They will personally explore the effects of various 3-D visual cues with special hardware available at UAH, and they will make their own holograms. The third element is a K-12 outreach program targeted at high school and elementary school students. High school students will be involved in a one day hands-on holographic display seminar as part of UAH's Introduction of Minorities to Engineering and Technology program. In addition, a series of science and engineering topics will be developed for a half-day elementary school presentation that will include many demonstrations and examples and one or two short projects. The aim of the presentation will be to encourage inquisitiveness and curiosity about physical phenomena, and to provide a sense of the purpose of science and engineering activity. All of these educational activities will involve the use of optics for practical applications, which is also the basic thrust of the research project. ***